Industry/University Cooperative Research Center for Glass - Center Evaluator

9421602 Pye This project funds an evaluator to study the industry/university interactions occurring in Alfred University's Industry/University Cooperative Research Center for Glass Research. The Center continues to meet the renewal criteria requirements of the I/UCRC Program. This study generated the statistics for the Programs's database. The research is well qualified to perform this study. The Program Manager recommends Alfred University be awarded $24,000 for 36 months.